Modular Type Systems

CCR-9912352
Pierce, Benjamin C.
University of Pennsylvania
Modular Type Systems

This project explores the use of FEATURE-BASED COMPOSITION to address
issues of MODULARITY in the design, implementation, and formal
analysis of type systems and related deductive systems. The ultimate
goal is to build and disseminate a "type system designer's workbench"
named TinkerType: a conceptual framework, tool, and component library
supporting the design and analysis of type systems. It will include a
substantial library of ``type system components'' covering a wide
range of familiar typed lambda-calculi, as well as a tool for
assembling from these components both formatted mathematical
specifications and executable implementations of systems. More
ambitiously, we intend to incorporate modularized proofs of properties
such as soundness and decidability in the form of fragments of proof
script for a mechanical proof checker. Potential applications of
TinkerType include experimentation with new type systems in the form
of typed lambda-calculi, as well as structured presentations of
families of typed assembly languages, object calculi, etc. Moreover,
the proposed mechanisms for statically checking the reasonableness of
particular combinations of features are relevant to other
feature-based approaches to constructing systems (for example, using
the aspect- or subject-oriented programming languages being designed
at Xerox or IBM or the microprotocol approach to distributed systems
advocated by the Ensemble project). TinkerType is also a crucial
enabling technology for a planned textbook on type systems.